2001 American Control Conference: June 25-27, Washington, DC.

This project seeks to sponsor engineering students to attend the 2001 American Control Conference sponsored by the American Automatic Control Council. The conference will focus on theoretical issues, engineering methodologies and industrial applications in every aspect of control research and development. The goal of this proposal is to develop an opportunity for engineering students to be informed about the most recent advances in the areas of control theory and practices. Travel support for student attendance will be advertised nationwide and women, minorities and disabled students will be especially encouraged to apply for sponsorship.